Community Focused Scholarships in Electrical and Mechanical Engineering and Computer Science

This program is awarding scholarships to full-time students in the fields of computer science, electrical engineering and mechanical engineering who demonstrate both academic potential and financial need. A special effort is being made to attract and support academically talented Native American and Latino students in the area. High-school students from the Yakima Valley/Tri-Cities Mathematics Engineering Science Achievement program are being recruited. The project is increasing the quality, and number, of student support structures available for recruitment, retention and career placement. The project is making an impact in undergraduate education in the Columbia Basin region.